Travel Support for the Symposium on Architectures for Networking and Communications Systems

This award will support student travel to the ninth ACM/IEEE Symposium on Architectures for Networking and Communications Systems (ANCS), which will be held in in October in San Jose, California. ANCS is a top conference in the fields of computer architecture and networking. The funds will help support U.S. students, focusing on Ph.D. students at an advanced stage in their program and students who would otherwise not be able to attend ANCS. Supporting student travel to attend professional conferences and workshops is a very important mission of the NSF. Broader impacts include training the next generation of researchers in this important research area.